Ergodic Theory of d-adic Endomorphisms

Hoffman will investigate the properties of endomorphisms which are
isomorphic to one sided Bernoulli shifts. One direction this work
will take is to show that particular dynamical systems are isomorphic
to one sided Bernoulli shifts. In particular Hoffman will attempt to
classify which toral endomorphisms are isomorphic to a one sided
Bernoulli shift. He will also attempt to classify all toral
endomorphisms up to isomorphism. Hoffman will try to show the
differences between Ornstein's theory of Bernoulli automorphisms and
the emerging theory of Bernoulli endomorphisms. A particular example
of this relates to compact extensions of Bernoulli endomorphisms.
Rudolph proved that any compact extension of a Bernoulli shift that is
weak mixing is isomorphic to a Bernoulli shift. Hoffman will try to
show that Bernoulli endomorphisms do not share this property. Hoffman
will also continue his work in probability theory. He will continue
to study infinite percolation cluster on the square lattice. In
particular he will compare the properties of simple random walk on the
square lattice with the properties of simple random walk on infinite
percolation clusters. The overall goal of this portion of the
research is to determine if the distribution of paths for simple
random walk on the infinite percolation cluster can be rescaled in
such a way as to generate the distribution of Brownian paths in the
plane.

The study of randomness is a major part of the application of
mathematics to many interesting systems. For example, in statistics
knowledge of randomness is used to make sense of data and in applied
math random processes are used to model financial markets dynamical
systems. This proposal deals with randomness in the context of
dynamical systems and probability theory. This proposal will attempt
to classify various types of mathematical systems according to the
type and amount of randomness that they exhibit.